Effects of Surface Structure on Ordering in III/V Systems

9320541 Stringfellow The proposed research addresses fundamental surface processes related to atomic scale ordering in III-V semiconductor alloys during epitaxial growth. This ordering phenomenon has only recently been discovered, and is of great basic interest since ordering is thought to be intimately connected with the surface processes occurring during growth, and because ordering changes fundamental materials properties such as the band gap of the disordered alloy. Recent work has indicated that surface reconstruction and the motion of steps on the surface control the ordering process. Unfortunately, many of the observations leading to the ordering models are indirect. The proposed research attempts to directly relate surface features such as reconstruction and steps to ordering, and to simultaneously monitor optical and electrical properties of the resulting material. %%% At present, detailed understanding of the surface structure during vapor phase epitaxial crystal growth is generally poor. The proposed research will significantly benefit our basic understanding, control, and general ability to improve epitaxial growth processes. The research also has significant technological relevance; results from this research are expected to be useful in a variety of ways in developing and bringing advanced electronic and photonic device concepts to fruition. It will likely be useful for achieving photon and carrier confinement, and for the intentional reduction of the energy band gap for infrared photonic devices. Ordering is also expected to lead to enhancement of free carrier mobilities by eliminating alloy scattering. The research is expected to have a positive impact on the general areas of telecommunications, information processing; and high speed computing. ***